The Plastic Spin Effect: Theory and Experiments

The concept of plastic spin measures the rate of rotation of a continuum relative to its underlying substrate. This new concept has an important effect on the stress-strain relations of anisotropic materials, particularly at large deformations. The purpose of the proposed investigation is to check the validity of the PI's theoretical model by comparison with experimental data. Potential applications of the proposed research are metal forming and large deformation of fissured rocks. PI is qualified to conduct the proposed research; his recent theoretical model had been well-received by the mechanics community. An award is recommended.